ChaMPES - Computer Science, Chemistry, Marine & Environmental Science, Mathematics, Physics, Engineering Scholarships

Intellectual Merit

The Schools of Science and Engineering & Technology at the University house well-established research centers and programs that support the teaching and research efforts of faculty, undergraduate, and graduate students. This project is building on the strengths of these current efforts and provides significant educational opportunities for undergraduate students. Recipients of the scholarships participate in research and other activities under designated mentors. Students acquire the tools to be academically and professionally competitive to either enter the workforce or a graduate program.

Broader Impact

The project is designed to target the disciplines of chemistry, computer science, engineering, marine and environmental science, mathematics, and physics, where women and minorities are significantly underrepresented. By providing students with a sound education, mentoring and financial support structures and research opportunities that supplement their selected program of study, they are better equipped to succeed as graduate students and young professionals. The project greatly assists in ongoing efforts to increase the number of women and African-Americans who pursue advanced degrees and careers in STEM fields. The project can serve as a model for other institutions.